The Effects of Large Mammal Browsing on the Dynamics of Northern Ecosystems

This proposal addresses the interactions of moose with the dynamics of plant populations, their feedbacks with carbon and nitrogen cycles, and subsequent changes in boreal landscapes. The main hypothesis is that moose promote patchiness of vegetation in boreal forests. This patchiness results from alternation of species composition by selective, non-random foraging patterns across the landscape; different responses of species to browsing; differential establishment of plants in browsed patches; and changes in nutrient cycles caused by these changes in vegetation. The project will quantify moose interactions at soil, feeding station, habitat, and landscape scales in several valleys on Isle Royale National Park, Michigan. These valleys have different disturbance regimes and different assemblages of plant species. Field studies will determine spatial correspondences of foraging, the distribution of food and cover, browse quality, plant seed and litter dispersal, plant establishment, and soil nitrogen availability. These data will be assembled in a geographic information system that will be coupled with a forest simulation model. Computer studies will address how foraging strategies cause development of different spatial patterns of vegetation and soils, and how spatial variability in habitat influences moose population dynamics. The Investigators are well qualified to do the type of research and the University facilities are more than adequate.